Outreach Program for Junior High Science Teachers of American Indian and Native Alaskan Students in the Pacific Northwest

The project will develop culturally-relevant laboratory experiments for the middle school level which are tailored to the needs and interests of Pacific Northwest Tribes. Selected middle school teachers of Native Americans would be trained in the implementation of these materials in the classroom bringing 20 teachers to the University of Washington campus for each of two summers. A follow-up program of in-service workshops will also be held during the academic year. In addition the teachers will be in contact with each other and with the University of Washington faculty via an electronic network. The laboratory materials will focus upon areas of tribal concerns such as fisheries/forestry, soil analysis, museum conservation, and rediscovery of artistic techniques. The project will utilize the tribal leaders and others who are experts in the traditions of the Native American tribes to make sure that the materials developed will be appropriate for their culture.